Mathematical Sciences: Algebraic K-theory

This award supports research in algebraic K-theory, particularly with regard to the structure and computability of the K-theory of varieties with singularities. The principal investigator will investigate the relationship between K-theory, etale cohomology and cyclic homology, via the etale chern character, the cyclotomic trace and secondary chern character. He also will study the Adams operations on K-theory, with an eye toward vanishing conjectures for motivic cohomology and negative K-groups. This research is concerned with algebraic K-theory. In a broad sense, algebraic K-theory concerns the evolution of concepts from linear algebra such as basis and vector space. This work has significant implications for number theory and algebraic geometry, and promises to make exciting connections between a number of different areas in mathematics.